U.S.-Venezuela Joint Workshop: XIX Latin American Congress of Physiological Sciences

9722481 Frank This Americas Program award will support travel and related expenses for 10 US scientists to participate in a joint US- Venezuela Congress of Physiological Sciences, scheduled to take place in Caracas, Venezuela, August 31 - September 5, 1997. Organizers are Dr. Martin Frank, American Physiological Society and Dr. Sonia Torres, Venezuela Society of Physiological Sciences. The program will cover a wide range of physiological sciences representing the broad scope of investigations conducted by the scientists, and will provide a regional and local forum for the exchange of physiological information and research data. One of the goals of the project is to encourage the development of intellectual and research interactions between scientists from US and Latin America. Such interactions promote scientific collaborations and create opportunities for broadening the scientific experience of young scientists. ***